"Tropical Rainforest" -- An IMAX/OMNIMAX Film

The Science Museum of Minnesota will produce a 38- minute IMAX/OMNIMAX film on the topic of tropical rainforests. The objectives of the film include: To illustrate the key scientific concepts relating to rainforest ecology including biological diversity, biological change and human impact; To expose a wider audience to ecological thinking than might normally be exposed through traditional means of science education or science media; To communicate the complexity of conservation issues related to the rainforests. In addition, the film will portray science as an attractive career, particularly for minorities and women. The museum will create an integrated program of science enrichment materials that will accompany the film and will be used for both school groups and general audiences. Linking an education program to an IMAX/OMNIMAX film is a first for the industry and will extend the learning potential of the project. Tropical Rainforest will be distributed to IMAX/OMNIMAX theaters located in museums and science technology centers; it has the potential to be seen by more than 14 million people in its first four years of distribution.